Use of NMR Spectroscopy to Integrate the Chemisty Curriculum

The study of organic, physical, and analytical chemistry by undergraduates will be integrated through use of nuclear magnetic resonance spectroscopy. Experiments to be performed in organic lab in place of the normal synthesis labs include Instrumental Aspects of NMR, and Keto-Enol Tautomerization Kinetics. Two experiments involving NMR will also be added to the physical chemistry course: Effect of NMR Shift Reagents on NMR Spectra, and Determination of Para-magnetic Susceptibility using NMR. Quantitative uses of the technique will be introduced into the second semester quantitative analysis course. The technique will also be used extensively in the organic qualitative analysis course to augment traditional means of identifying unknowns. The grantee will match the NSF award from non-Federal sources.